Prediction of Multicomponent Adsorption Equilibrium in Industrial Microporous Adsorbents

This research studies, theoretically and experimentally, the process of equilibrium physical adsorption onto porous solids, particularly focusing on the effect of polydispersity of the adsorbent pores. Theoretically, Monte Carlo simulations in the Grand Canonical Ensemble will be undertaken to study the adsorption process of multicomponent fluid mixtures at a molecular level, in slit shaped pores within a solid phase of carbon. In the simulation, interactions among fluid molecules will be represented by a Lennard-Jones potential, and interactions among the fluid molecules and the adsorbent will be accounted for using a 9-3 potential. For the interactions between like fluid molecules, interaction parameters will be obtained by matching the predictions of pure component simulations for the liquid density and vapor pressure with experimental values. A set of combining rules will be used to obtain the unlike fluid interaction parameters from those of the like interactions. The simulations will establish pure and mixed component isotherms as a function of temperature and pressure. In addition to the Monte-Carlo simulations, an adsorption theory will be developed which will be based on the Ideal Adsorbed Solution theory (IAS). Experimentally, equilibrium adsorption measurements will be undertaken using graphitized carbon and small molecules such as methane, ethane, ethylene, carbon dioxide and propylene in an open flow apparatus. In this apparatus, a gas mixture of desired composition is passed over the adsorbent, and the effluent gas is monitored until its composition is identical to that of the feed. At that point, the system is closed, the pressure is measured, and desorption is initiated by heating the adsorbent and allowing the desorbed material to flow to a previously evacuated desorbate tank. The pressure and composition in the desorbate tank is measured, and from these measurements the amount of material which had been adsorbed onto the adsorbent, and its composition, can be calculated. In addition to the adsorption measurements, pore size distributions will be measured by nitrogen adsorption. The interpretation of the adsorption results will utilize a new statistical mechanical model for nitrogen adsorption in a pore which is based on density functional theory and which is valid for micropores (20 A and smaller) as well as mesopores (20-5000 A). The pore size distribution will be factored into the theory, and theoretical predictions will be compared with experiments.